Various Topics in Theoretical Physics

The proposal has two main components. The first attempts to describe nucleon structure, and the interactions between nucleons in terms of Quantum Chromodynamics, (QCD). There are two regions with a straightforward connection: short distances, where asymptotic freedom allows a perturbative treatment in terms of quarks and gluons, and large distances, where nucleons appear as manifestations of the non-linear nature of QCD at large distances: the latter leads to a picture of nucleons as solitons, and can be handled in the large N (number of colors) and classical limit, while interactions between them can be described in terms of multimeson exchange. ("QCD at small q is a complicated nonlinear theory of mesons" Witten). The aim is to understand the connection between these two pictures. As a start 1/N and quantum corrections to the soliton picture are to be tackled. The second component is to continue the study of scattering theory with techniques that combine algebraic and analytic techniques: this has applications to molecular as well as nuclear physics.